Polygonal Harmonics in Particle Shape Analysis

When points of fixed separation are marked off on a closed planear curve, the points rapidly converge to a set of definite locations on that curve; the chords between these points produce an equilateral polygon. The goal of this research is to explore whether polygons so produced are useful for characterizing shape features of particles in terms of a few descriptors. This new method of shape characterization will be compared with other techniques of shape description. The research also will attempt to link particle shape characterization with other performance properties of particles including packing, granular flow, and rollability. New techniques for automatically, efficiently, and succinctly characterizing particle shape are needed urgently for analysis and/or control of engineering processes involving particles of irregular shape.